International Symposium: "Polynanomeress: A Matrix for Design to Build Processes, Porto Heli, Greece

This is a proposal to organize an international symposium in the town of Porto
Heli, Greece from June 25 to July 2, 2003 to:
__ Establish the state of the art in international nanotechnology research as it
applies to a new system class we have defined: polynanomers and
polynanomeric composites.
__ Identify the needs for scientific and engineering research to advance new
technologies on a global scale.
__ Identify the requirements for research cooperation between academia,
industry, governments, non-government and non-profit organizations on a
global basis.
__ Develop standards and methods for rapid utilization of new technologies, such
as nanotechnology in areas like the aerospace and health industries.
__ Examine the ability to carry out commercialization of innovation through
international cooperations and alliances performed through incubators.
We anticipate this symposium to impact a broad constituency, ranging from
the scientific and engineering community to the business, management and science
policy at the global, regional and local levels. Furthermore, we expect the results of
the symposium to be incorporated in the formation of an incubator related to the
issues identified. Basic support is being requested between the U.S., the European Union and Korea to establish the global symposium. Additional countries and/or regions are also being solicitated and will be invited to the symposium.

Broader Impact Statement
This symposium may be expected to impact a broad constituency, ranging
from the scientific and engineering community to the business, management and
science policy at the global, regional and local levels. Focusing on rapid
commercialization of nanotechnology, as it relates to a new class of materials,
polynanomers, that blur the boundaries of polymers, ceramics and metals, the
symposium will also provide for the first time applications to the aerospace and health industries in an integrated manner. We expect collectively the results of the
symposium to be incorporated in the formation of an incubator related to the above
subjects.